Robot Vision System Based on Log-Polar Image Plane Coordinates

In expressing transformations associated with dynamic 3- dimensional perspective imagery, log-polar coordinates have recently been shown to possess significant computational advantages over traditional Cartesian coordinates. Reduced pixel count and reduction in calculations per pixel suggest the feasibility of compact, high-performance systems not possible with Cartesian systems. This award will provide Phase I SBIR funding and will support design of a robot vision testbed capable of performing useful visual functions such as dynamic depth mapping and camera/vehicle motion control. This system will incorporate new algorithms for visual tracking and depth mapping that have recently been developed in this field, and will reformulate those algorithms form Cartesian to log-polar coordinates.***